A village and School District Microwave Wide Area Network

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for 24 months to connect an elementary school and a middle school to the Internet using microwave technology. The wireless link will connect to a high school, which has a fiber connection to the Internet.